Mathematical Sciences: Determined Inverse Boundary Value Problems and Applications

The project continues work on inverse boundary problems and their application to inverse scattering theory. Inverse problems are common in physical experiments where one only knows the outcome of some process and tries to determine the physical parameters which could produce such a result. In this work, one seeks the coefficients of a partial differential equation from knowledge of the associated map taking Dirichlet data (boundary values) to Neumann data (boundary flux). Inverse problems have clear applications to electric current tomography. In addition, it is an example of how specific applications can lead to new methods, which then lead to new and unexpected theoretical developments. In the present context, the new method is the use of exponential solutions of elliptic partial differential equations. It may be viewed as an elliptic analogue of geometrical optics. The method has led to major advances in inverse scattering and several other, related problems. It is now beginning to yield results on problems involving systems (such as Maxwell's equations) rather than scalar equations. The success of this viewpoint for elliptic problems has also spurred work on analogous questions for hyperbolic equations. The goals for future work involve further exploration of the global uniqueness question in two dimensions (a major concern in all inverse problems, with two dimensions being the most difficult) and further progress on systems such as Maxwell's equations or those of elasticity.